Collaborative: Ethics in the Details

Michael Davis, Illinois Inst. of Technology ; Alan Feinerman, Univ. of Illinois-Chicago
Proposal # 0629416 / 0629393
Ethics and Values in Science, Engineering and Technology

This award is made under Ethics Education in Science and Engineering (NSF 06-524).
There are three major approaches to ethics education in engineering and science:
(1) free-standing courses in ethics; (2) large scale education ethics modules, and (3) micro-insertions
of ethics instruction into technical courses. This project proposes an innovation in
the application of micro-insertion. It will focus on the micro-insertion approach in graduate education of engineers. Because labs are central to graduate education in both engineering and science the comparison of the effectiveness of micro-insertion in the classroom with micro-insertion in the lab will be studied. A nanotechnology lab will be included because graduate students' engagement with practical projects in an emerging technology should provide illuminatingly new micro-insertion problems, useful questions related to them, and useful insights.

The objectives of the project are: 1) to demonstrate an efficient way to teach faculty and
graduate students how to develop micro-insertion problems that are suitable for use in
graduate engineering curricula, both courses and labs; 2) to assess the effectiveness of the
micro-insertion in graduate engineering curricula, comparing its effects in the classroom
with its effects in a nanotechnology lab; and 3) to create an electronic resource for
disseminating micro-insertion problems to engineering faculty worldwide.

The proposed project will contribute in at least two ways to the field of
engineering ethics. First, the multi-year assessment data that the project team will gather and
analyze will not only provide insights into the micro-insertion method but will also lay the
groundwork for later comparative research with other methods. Second, it will prepare
graduate students to produce micro-insertion problems, allowing the determination of whether
grad students can assist faculty in integrating ethics into engineering courses (a proof of
concept).

The proposed project will both advance understanding and promote teaching and
training at the graduate level in engineering ethics. The project team and participating universities
include underrepresented groups and will ensure that the Ethics In-Basket meets
accessibility standards for users with physical and cognitive disabilities. Research results will be
reported in a series of articles and conference papers directed at researchers and educators in three
interrelated fields: engineering, ethics, and technical communication.